SBIR Phase II: Six Degree-of-Freedom Atomic Force Microscopes

This Small Business Innovation Research Phase II Project will demonstrate unique capabilities at Xidex's Six Degree-of-Freedom Atomic Force microscope (6-DOF AFM) technology for use as a critical dimension (CD) metrology tool by semiconductor industry. Our CD-AFM design accommodates tilting of the AFM cantilever through large anqular ranges, thereby enabling the probe tip to access undercuts and re-entrant features. Our sensing system tracks the AFM cantilever in up to 6 degrees-of-freedom. The CD-AFM also allows operating the cantilever and tip in the X, Y, and Z directions, enabling is to determine 3-D surface slopes. This enables a scanning strategy where the raster step in Y can be altered for faster AFM imaging and better inspection of profiles in Y. Another advantage is elimination of cosine errors due to cantilever bending and tilt, vertical tip-sample alignment, and X and Y orthogonality error. The semiconductor industry recognizes that a viable alternative to CD-scanning electronic microscope (CD-SEM) technology will be required within the next few year!!. The shortcomings of CD-SEMs present an opportunity to develop a new AFM-based CD metrology tool to ultimately replace the CD-SEM and meet urgent needs of the National Technology Roadmap for production quality control at sub-180 nm feature sizes.
Commercial applications include (a) critical dimension (CD) metrology tools for inline production quality control in semiconductor fabrication facilities and (b) tools for calibration of CD scanning electron microscopes (SEMs).